Support for NSF Evaluator for the I/UCRC for Hazardous Waste Management

EEC-9522668 Magee This award funds an evaluator to study the industry/university interaction occurring within the New Jersey Institute of Technology's Industry/University Cooperative Research Center for Hazardous Waste Management. The Center also involves Rutgers University, Princeton University, Stevels Institute of Technology, and the University of Medicine Dentistry of New Jersey. The Center continues to operate with the protocols established for an I/UCRC and meets the renewal criteria for a Center in the I/UCRC Program.